NOSS: An Integrated Power Aware Sensor-Simulation Network System for Long-Term Performance Assessment of Concrete Infrastructures

The performance of civil infrastructures plays an important role in maintaining the
quality of life of the U.S. citizens as well as in the nation's defense systems. The project attacks several
critical issues involved in the new generation of smart civil infrastructure system with built-in sensor
network. Performance assessment of civil infrastructure is usually a long-term task (i.e. several years) the
power supply for the sensor network becomes a problem, especially for the embedded sensors in
structures. The first focus is to provide a reliable energy harvesting method for the sensors and a power
management plan for the sensor network. For long-term performance assessment, processing the large
amount of data obtained from the sensor network is a difficult and important task, the second focus is how
to configure the sensor network and assemble the measured data in a more meaningful way in order to use
the available information to predict future structural performance. To this end, this project is to develop
an integrated Power Aware Sensor-Simulation Network system for long-term performance
assessment of concrete infrastructures. The system consists of three subsystems
including an energy harvesting and power management system for the sensors, a combined sensor-based
numerical simulation system, and a massively parallel computing system for the numerical calculations.
Built-in sensors have found their applications not only in civil, and aerospace structures, but
also in mechanical engineering and medical devices such as artificial hearts. Therefore, the
research will have a great impact in many areas of science and technologies.